Metrology of Robotic Manipulators

A three-dimensional coordinate measurement system and associated hardware will be acquired to be used for measurements--including modal analysis, force sensing, directed-light end-effector coordinate measurement--to enable semi-automatic determination of geometrical, deflection, mass, and control parameters for several distinct robotic systems. Based on these results, a generic technology for metrology of such systems will be formulated and demonstrated.